WORKSHOP: Solid Freeform Fabrication Symposium; Austin, Texas, August 9-11, 1999

The Solid Freeform Fabrication (SFF) Symposium provides an annual forum for research exchange in the area of rapid prototyping. The meeting draws approximately 200 researchers from universities, companies and national laboratories from all over the world. Approximately 95 talks and posters were presented at the 1998 meeting. The meeting is well regarded by the research community. The SFF Symposium also attracts graduate students worldwide. The previous NSF support contributed to the reduction of student registration fee in the past. The 1999 SFF Symposium will be held at the University of Texas at Austin, August 9-11.

This SFF symposium is perhaps the best research meeting on rapid prototyping in the world. It is of significant importance to the researchers and provides an excellent learning experience for the participated graduate students.